Support of Solid State Sciences Committee

9408495 Taylor The Solid State Science Committee (SSSC) proposes to continue its effort to monitor the health of the field of materials science in the United States. The committee will prepare a forum on processing and manufacturing of advanced materials. It will assess the progress that might be achieved with the new generation of free electron lasers jointly with the Board on Chemical Sciences and Technology. The SSSC will monitor and provide assistance on photonics and optical materials to the Board on Physics and Astronomy and the National Materials Advisory Board on a study on optical sciences and engineering. %%% The Solid State Science Committee (SSSC) proposes to continue its effort to monitor the health of the field of materials science in the United States. The committee will prepare a forum on processing and manufacturing of advanced materials. It will assess the progress that might be achieved with the new generation of free electron lasers jointly with the Board on Chemical Sciences and Technology. The SSSC will monitor and provide assistance on photonics and optical materials on the Board on Physics and Astronomy and the National Materials Advisory Board on a study on optical science and engineering.